Mathematical Sciences: Combinatorial Investigation of Some Graph Optimization Problems

This research focuses on the development of decomposition techniques which can be used in the design of efficient algorithms for graph packing, covering, and recognition problems. The specific graph theoretic problems to be investigated have important practical applications related to computational complexity issues and computer architecture design. In particular, the research has applications to the synchronization of parallel processes and to optimization in computer storage. Polynomial time algorithms for packing and covering problems on general perfect graphs are developed.